The Mathematicians and Education Reform Forum

9353090 Fisher The Mathematicians and Education Reform Forum (MER) proposes to institutionalize a program developed over the past 5 years. The mission of MER "...is to encourage and facilitate the involvement of mathematicians...in K-14 mathematics education, and to promote the professional recognition of educational work within the mathematics community". The dissemination effort for 3 years focusses on: (1) workshops to facilitate change in the college preparation of mathematics teachers; (2) establishing links between MER and 7 professional mathematics organizations for the purpose of bringing about change among the individual members of those organizations; (3) establishing and e-mail newsletter and network; (4) holding a video teleconference; (5) publishing a newsletter for 5,500 mathematicians; and (6) integrating the functions of MER with the American Mathematical Society (AMS). The effort is guided by a core group of four leaders and a steering committee of key national figures. ***